Novel Modified Fluoropolymeric Materials for Optical Biosensor Applications

9361746 Casstevens This Small Business Innovation Research (SBIR) project is in the general area of analytical and surface chemistry and in the subfield of biosensors. The main Phase I objective is the development of a fluoropolymer based immunoprobe where biological recognition elements are immobilized onto the surface of a transparent film of polytetrafluoroethylene-co- hexafluoropropylene (FEP). The advantages of an FEP-based probe are better biocompatibility and less denaturation or loss of activity of the antibody protein induced by traditional glass or quartz substrates. Three areas which will be explored in order to optimize the surface chemistry are (1) initial surface modification which incorporates reactive surface hydroxyl functionality to a film of FEP; (2) a comparison of monofunctional vs difunctional covalent linking ligands; and (3) evaluation of the density and activity of the antibody protein and its effect on the fluorescence response. %%% More than four billion dollars are spent annually on immunochemical based analyses. The successful development of a versatile fluoropolymer immunoprobe will provide the basis for their incorporation into a wide range of devices that are sensitive, economical and compatible with fiber optic technology. ***